Examining The Success of African-American Graduate and Undergraduate Students in Sci, Math, Eng, & Tech: Longitudinal Studies of the Meyerhoff Scholars Program.

The major goals of this grant are to 1) systemically evaluate the Meyerhoff Program's positive, long-term academic outcomes (e.g., persistence to graduation in SMET majors, enrollment in SMET graduate programs, and completion of SMET graduate degrees); 2) improve the scientific rigor of the comparison samples (through random assignment) against which the success of the Meyerhoff Scolars is measured so that the positive outcomes may be more definitively attributed to the program; 3) further delineate the program characteristics perceived by students as most responsible for their success; and 4) further explore the processes underlying African-American student success in SMET majors. Additionally, this research will ascertain whether the same processes are responsible for African-American graduate, as for undergraduate, SMET student successes, a virtually unexplored topic.